4-manifolds, von Neumann Algebras and Elliptic Cohomology

DMS-0305280
Peter Teichner

In previous work, the principal investigator constructed a highly
nontrivial filtration of the knot concordance group, indexed by the
height of gropes embedded in the 4-ball, and partially detected by
von Neumann's continuous dimension. The resulting graded group
remains unknown, and the principal investigator proposes various
approaches to uncover the structure of this group. Related questions
about link concordance and embedding problems of 2-spheres into
4-manifolds can also be studied by these methods.
In the second part of the project, the principal investigator is
attempting to give a geometric definition of elliptic cohomology in
terms of a modification of Segal's "elliptic objects". These are
conformal field theories parametrized by a topological space X, in
particular to each circle in X they associate a Hilbert space. For
more than 15 years, Segal's approach could not be turned into a
cohomology theory because of the failure of the Mayer-Vietoris
principle. The new idea is to apply the fusion of bimodules of von
Neumann algebras, developed by Connes, to make the conformal field
theory "local in X". Fusion is used to decompose the Hilbert space
whenever the corresponding circle in X is decomposed. Such a local
theory should then satisfy all the axioms of a cohomology theory.

Both parts of the project relate notions from theoretical physics to
mathematics. Historically, the converse relation was more common,
where a mathematical notion (like Riemannian geometry or functional
analysis) was used to explain a physical theory (like relativity or
quantum mechanics). In the last decades, surprising mathematical
predictions (provable only in very rare cases) came out of
considerations in theoretical physics (like quantum gravity or
conformal field theory). It is thus of the ultimate importance for
mathematical research to incorporate such considerations into the
body of well understood theories.
In the first part of this project, the principal investigator
proposes to continue his successful study of 4-dimensional manifolds
(most relevant in relativity) via techniques originally proposed by
von Neumann for the study of quantum mechanics. In the second part,
the principal investigator proposes to refine the notion of a
conformal field theory so that it leads to a geometrical definition
of "elliptic cohomology". This cohomology is an enormously successful
tool in mathematics and the proposed refinement has the potential to
lead to a topological understanding of all conformal field theories.